Acquisition of a Small Computing Cluster for Atmospheric Physics Studies

This modest proposal seeks funding to purchase an 8-node computing cluster system to support research and education at the Coastal Carolina University (CCU), a Non-PhD granting institution. The primary use of the cluster will be for undergraduate research training and education in the Applied Physics major, although the machine will be available for general use by the entire university. The cluster will play an integral part in the integration of research and education at CCU, and will strengthen CCU's institutional commitment toward enhancing undergraduate education through inquiry-based learning. The particular focus in the Department of Applied Physics will be on two topics: global circulation model simulations of mesosphere-stratosphere-troposphere coupling and how that impacts ozone variability, and mesoscale model simulations to explore the dynamics and impacts of gravity waves.